The Psychology of Physics Problem Solving: Theory and Practice; July 21-23, 1986; New York, NY

The past nine years have yielded a large research corpus on the psychology of physical-science problem solving. Several research approaches have developed analyses of problem solving in physical science, emphasizing such aspects as qualitative conceptions and search strategies. It is now appropriate to evaluate what we have learned and what remains to be done in developing a coherent theoretical approach that supports physical science education. Funds are being provided for a four-part working conference that will enable major researchers in the area of physics problem solving and education to address this problem. The first part will attempt to confront and coordinate different research approaches to develop a core model of problem solving by novices in physics. The second part will develop the educational implications of the core model. The third part will critique the core model by considering what science educators need from a theory of problem solving to advance the effectiveness of physics instruction. In light of the critique, the fourth part will discuss methodological and conceptual approaches that would better coordinate psychological theory and educational practice. The conference is scheduled to meet from July 21-23, 1986. Working papers prepared beforehand will be used to focus and initiate discussion. The results of the discussions will be disseminated through an American Educational Research Association symposium and three papers for appropriate research and education journals that summarize the current understanding of novice physical-science problem solving, the limitations of that understanding for educational purposes, and directions for future research.